ChemCom Dissemination/Networks

Chemistry in the Community (ChemCom) was designed to provide an attractive, open access route for all high school students to the realm of relevant and useful chemical phenomena. What began as a dream a few years ago is now a well-developed high school program brought about by the concerted efforts of high school teachers, college and university professors, and industrial chemists and financed by the National Science Foundation and the American Chemical Society. This three-year project is designed as a partnership to support the dissemination of the Chemcom curriculum. Specially selected teachers will be educated so that they can become resource teachers who will conduct ChemCom inservice workshops throughout the country. These resource teachers are expected to represent as many as 150 school systems and will reach as many as 2,000 teachers with their inservice programs. The project also includes a series of networking activities entitled "An Evening with ChemCom, the establishment of a computer network, and the production of a newsletter. The evaluation will focus on the effectiveness of this particular model for implementing curriculum change. The total cost sharing (ACS, Publisher, School Systems) is expected to be almost five times the NSF request.